Engineering Faculty Internship: Concurrent Design and Evaluation of a Family of Material Handling Containers

The objective of this faculty internship is to develop more useful and efficient containers for the applied research problems associated with the movement of huge volumes of mail across the United States and around the world. Research activities include container design issues and a wide array of containerization problems. The long-term goal is the development of a family of compatible containers to handle a wide variety of different types of mail under various environmental conditions. This research impacts numerous material handling issues with applicability to distribution and manufacturing operations in general.